U.S.-Japan Collaborative Research: Next Generation Superconductive Magnet Devices Based on High-Tc Oxide Superconductors

This award will support a two-year U.S.-Japan cooperative research project between Professor Yuki-Kazu Iwasa, Department of Mechanical Engineering, Massachusetts Institute of Technology, and Professor Kaoru Yamafuji, Department of Electronics, Kyushu University, Fukuoka, Japan. Other U.S. investigators involved in the project are from the University of Wisconsin, Oak Ridge National Laboratory, the National Institute for Standards and Technology, and Brookhaven National Laboratory. Other Japanese investigators are from Osaka University, Yokohama National University, Iwate University, and Nihon University. The project will focus on three important areas of research on superconducting magnet technology: (1) engineering issues on high-Tc superconductor magnet technology, emphasizing and incorporating the requirements of fabricability, windability, stability, protection, and operating temperature; (2) thermal stability and protection for high-Tc magnet systems; and (3) AC losses in high-Tc superconductors. The U.S. and Japanese research groups will share their unique facilities to collaborate in both experimental and analytical studies in these important areas.